CAREER: Generic Object Recognition in a Dynamic Environment

The research addresses object recognition from controlled industrial environments to less restricted domains. This will require object representation that can encode the prototypical shape of an object without requiring its exact geometry. Furthermore, object recognition is not a single isolated task, but rather a complex interaction of a set of closely-related behaviors, including both bottom-up and top down recognition, localization, active recognition, quantitative shape recovery, and object tracking. Not only must these individual problems be solved, they must be integrated within a common representational framework, since a complex recognition task may involve rapid transitions from one behavior to another. Earlier research in the PI's laboratory began with the introduction of a novel object representation integrating object-centered and viewercentered models, this representation, a probabilistic partbased aspect hierarchy, has formed the foundation for novel approaches to each of the above recognition problems. The new research will extend the work along each of these behaviors, supporting their application to more complex domains, including that of visual aids for the disabled as well as content-based image retrieval. In addition, this research will address the task of determining, for a given set of 3-D objects, the decomposition of the objects into parts which is optimal in terms of recognition performance.